U.S.-India CR: Determination of Crystal Deformation in the India Eurasian Plate Quantification of Strain Accumulation Across the Himalaya and Mechanism of Continental Tectonics

INT-9615213 Gaur Description: This proposal will add a collaborative component to a research project in Central Asia that is currently supported by the Division of Earth Sciences, Geophysics Program. It will activate a new collaboration between Roger Bilham of the University of Colorado and Vinod Gaur/ John Paul of the Centre for Mathematical Modeling, Indian Institute of Sciences, Bangalore. The researchers have developed a large field program to determine: the shift in latitude of the Indian subcontinent, the deformation in southern India, the rate of convergence of India and Tibet, and they will conduct measurements in Nepal that will provide a measurement interval for the Nepal survey. Their measurements will permit characterization of future regions of enhanced seismic potential, establish the rate of growth of the Himalaya, and the recurrence interval for great earthquakes there. Scope: The investigators seek funds to support travel to India and minor expenses to supplement field research costs. This research will determine the renewal time for earthquakes in India and Nepal and identify regions of potentially enhanced seismic risk in Peninsular India. Since the destructive Latur earthquake of 1993, there is great urgency to accomplish the goals of this research. ***